Mecahnism of the Conformational Change in E1E2-Type Transport Atpases

A variety of life processes, ranging from muscle contraction to nutrient absorption, are either triggered or driven by the selective transport of ions across cell membranes. The working hypothesis in virtually all models of mammalian active ion transport is that the carrier can assume different conformations in which the ion binding sites are alternately exposed to opposite sides of the membrane. The mechanism of the conformational change is unknown. Does the conformational change gate a channel, or is extensive rearrangement of the protein structure involved? The principal objective of the research proposed in this application is to obtain physicochemical data on the conformational transition step in the reaction mechanism to permit discrimination among alternative proposals for active ion transport. The forward and reverse rates of the conformational change reported by fluorescent labeling of E1E2-pumps will be measured as a function of temperature. Analysis of the results by absolute reaction rate theory places contraints on the types of molecular chemical events that are occurring by resolving the enery which determines the rate and extent of reaction into heat changes resulting from formation, or cleavage, of chemical bonds and into changes in the organization of the system that increase, or decrease, the number of molecular degrees of freedom. The transport enzyme, the monovalent cation and the solvent structure will be empirically varied to learn which reactants are important and how they affect the conformational change in E1E2-enyzmes.